FASEB Summer Research Conference: Folate, B12, and One-Carbon Metabolism to be held August 5-10, 2000, in Snowmass Village, Colorado

Appling
MCB 0075882
The Eighth FASEB Summer Research Conference on Folic Acid, Vitamin B12 and One Carbon Metabolism will be held under the auspices of the Federation of American Societies for Experimental Biology (FASEB) from August 5 through August 10, 2000, at Snowmass Village, Colorado. This conference offers a unique opportunity for scientists from a broad group of disciplines but united by a common interest in folic acid, vitamin B12 and one carbon metabolism, to interact both formally and informally. Scheduled every other year, the last seven conferences have been fully subscribed. The program includes well-established scientists as well as those just entering the field and topics covering the entire spectrum of research in these fields. In addition to the formal presentations, the program will be complemented with poster sessions and workshops. The meeting is structured to allow graduate students and postdoctoral fellows, as well as established scientists, an opportunity to present and discuss their work. The funds provided by the National Science Foundation will be used for travel awards for graduate students and postdoctoral fellows presenting outstanding posters.